Interdisciplinary Materials Research

The Materials Research Laboratory at MIT under the direction of Dr. J. David Litster supports interactive, multidisciplinary research in five major thrust areas, operates and maintains central experimental facilities for a wide range of materials- related research on campus, and provides seed funding for high- risk projects in materials research. Major research areas include phases and phase transitions, synthesis and properties of novel polymers, innovations in steel technology (supported at MIT through FY 1988 only), intermetallic compounds at high temperatures, and a new thrust in transition metal oxides. Development and use of major central facilities is shared and coordinated with the Harvard University MRL. The MIT MRL research program involves about forty faculty members, eight postdoctoral research associates, more than fifty graduate students, and twenty undergraduates.